CAREER: Mapping the Mind in Search of Oculomotor Learning Strategies

0447713
Alvarez

This project will establish the Vision and Neural Engineering Laboratory at NJIT. The PI has already established a working oculomotor research laboratory. The PI proposes a set of experiments to assess vergent (depth) eye movement mechanisms in motion tracking. The core of her proposed techniques is based around learning a motor control task under paradigms of reinforcement and interference learning. Visual tracking as well as fMRI diagnostics will be used, followed by subsequent analysis via ICA.